Mathematical Sciences: Factorization and Path Integration: AMiscroscopic Approach to Direct and Inverse Wave Propagation

This research project focuses on the development of new multidimensional algorithms for direct and inverse wave propagation in inhomogeneous media. The phase methods and path integral constructions offer a novel and promising approach to a difficult but important class of research problems. The research results will have applications in acoustics, sonar technology and tomography.